ITR-Reconfigurable multi-user quantum key distribution using optical fiber sagnac interferometer

A highly secure information network can be build using quantum cryptography by distributing the data encryption keys using single photons. Such a network would be immune to any technological advances in computing technology as the key is encrypted on a quantum physical level. This project focuses on a novel dynamically reconfigurable multi-user quantum key distribution (QKD) system using an optical fiber Sagnac Interferometer. The project will include an experimental demonstration of a four user QKD system that allows multiple quantum encryption links to be established in the same physical optical network. Theoretical studies will focus on the security of the Sagnac Interferometer based multi-user QKD network and its immunity to malicious eavesdropping. In addition, the multi-user QKD network in this project will provide a physical platform that allows the system to simulate the effects of eavesdropping.
.